Computerized Multi-purpose Experimental Psychology Laboratory

9351639 Burke This project is improving the quality of instruction in the Minot State University Psychology curriculum. Psychology's previous affiliation with the Education Department necessitated a curriculum centered on supporting the goal of teacher training. As a separate department, Psychology has now diversified its curriculum to include core courses in which a laboratory experience for our students is essential. Minot State's students primarily come from rural areas, where exposure to psychology is limited and experience with laboratory facilities is nil. The majority of our psychology majors are female (71%), and ten percent of their majors are Native Americans who have had little educational opportunity to work with laboratory equipment. This project is allowing Minot State's Psychology Department to establish a psychological laboratory with computers providing the major experiential base. With modern technology, students are simulating experiments, equipment, and physiological dissecting at a great cost savings to the university and with adaptability for the future. This project is giving students the opportunity to dramatically increase their understanding of Psychology as a science. ***